Computer Science, Engineering, and Mathematics Scholarships Program

Through the NSF Computer Science, Engineering and Math Scholarship program Mercy College is providing, each year, 15 talented, economically disadvantaged Computer Science majors, with the opportunity to pursue full time study towards their degree program. Mercy College is a Hispanic Serving Institution with a student body consisting of mainly first-generation college students, who are heads-of-households, often economically disadvantaged and juggling occupations with the pursuit of higher education. Through this program Mercy College is providing talented, economically disadvantaged students with scholarship support enabling them to lessen dependence on work to complete degree programs in computer science. The project is also achieving a secondary goal of increasing the number of students, underrepresented in computer science, that complete degree programs in this area and pursue graduate education in this field.